SGER: Digital Aerial Video Mosaics for EcoSystem Carbon Cycle Modeling

EIA-0105272
Edward Riseman
University of Massachusetts

SGER: Digital Aerial Video Mosaics for Ecosystem Carbon Cycle Modeling

This grant will support preliminary explorations for applying digital video aerial image analysis to long-term issues of global warming, in particular carbon cycle modeling, in the government arena. Many government agencies are already using GIS heavily, but in a less dynamic way, relying on single images in time, without fine-grain time references. This project will explore government uses of real-time imaging, at resolutions beyond what can be achieved with commercial satellite images, allowing the digital film to be geo-referenced, integrated with data streams from other sensors, and viewed in 3D through polarized glasses.